REU: Marine Sciences Summer Intern Program, 1998-2001

9721390 Sharp This proposal requests funds to support a summer REU Site at the University of Delaware in Marine Studies. Funding to support 10 students each summer for three summers is requested. Research projects involve a broad range of topics in the marine sciences. Students are advised by faculty mentors in the selection, formulation, and execution of their research programs.